Understanding Support for Foreign Economic Aid and Assistance Programs

The project will measure public support for foreign economic assistance programs directed toward humanitarian concerns, contrast this support with public support for domestic humanitarian aid, and to build a framework modeling the public's foreign policy beliefs in the Post-Cold War era. This is the first study to directly assess differences in public attitudes toward domestic and foreign assistance program. This study will move us toward a more solid understanding of how Americans think about foreign policy. A computer-assisted telephone survey of a representative cross section of 500 American adults will be conducted to empirically measure and test preliminary hypotheses. The survey will measure a range of specific values and beliefs including humanitarianism, ethnocentrism, and support for cooperative internationalism. * * *